SBIR Phase II: Development of Advanced Composite Materials for Athletic Equipment

This Small Business Innovation Research (SBIR) Phase II project is for the development of scaled processes for the industrial manufacture of end-user moldable advanced composite materials for use in protective athletic equipment. Currently, protective athletic equipment and accessories must be produced using industrial manufacturing techniques that have high tooling costs. As a result, manufacturers produce a small range of predetermined sizes and shapes, which do not provide a custom fit for end users. In the case of athletic gear, there is a growing market for hard-shell protective equipment which can be custom molded for a better fit. Polyimine polymers and advanced composites offer a compelling blend of strength and malleability in order to create more user-friendly lightweight and durable advanced composites that may be shaped by the end-user. In addition to creating greater user customization, both the virgin polyimine polymer, and advanced composites that incorporate polyimines, are intrinsically recyclable in a closed-loop, low-energy, solution-based system. The total U.S. composite materials market is $25 billion, representing 36% of the global composites sector. Polyimine polymers and advanced composite derivatives will reduce environmental waste and increase manufacturing efficiencies across a broad range of vertical markets in the composites sector including personal protective equipment, aerospace, automotive, and infrastructural materials.

The intellectual merit of this project derives from the development of the unique chemistry of polyimine polymers. Polymers can be broadly grouped into two categories, thermosets and thermoplastics. Thermosets are strong due to the chemical characteristics of the plastic. However, once cured, thermosets cannot be reshaped. As a result, thermosets are neither repairable, nor are they efficiently recyclable. In contrast, thermoplastics, which are weaker than thermosets, may be molded and remolded. However, remolding requires very high temperatures. Polyimine polymers represent a new class of moldable and remoldable thermoset materials. Importantly, these polymers combine high rigidity and tough mechanical properties with mild molding temperatures. This Phase II research project will include scaled processes for the industrial manufacture of end user moldable composite materials that are a maximum of one-quarter inch in thickness and meet industry standards for limb joint protective equipment. The Phase II effort will also include a variety of types of material and mechanical testing, both in-house and at certified laboratories, in addition to extensive efforts at proving out manufacturability, as well as pilot production.